ROW: Investigation of Quantum and Classical Effects in Nonlinear Materials

The field of nonlinear dynamics is rapidly growing in the importance both in basic research and in applications. Interest in nonlinear dynamics is increasing in optical communications, optical switching, and optical computing. In addition, interest in quantum mechanical phenomena is growing owing to its impact on enhanced signal to noise ratio, reduced error rates in switching devices and enhanced sensitivity in instruments such as interferometers and gyroscopes. The proposed theoretical research will cover nonlinear classical dynamics, where coupled expressions of importance in soliton optical switching will be examined, including femtosecond duration solitons. The research will also cover nonclassical minimum uncertainty states (optical squeezing), examining dissipation and amplification, soliton self-frequency shift, multibeam phenomena, and number-phase minimum uncertainty states.